Improvements in an Undergraduate Molecular and Cellular Biology Laboratory

The primary objective of this project is to update laboratory instruction in the field of molecular biology. The new equipment provides experience with technologies commonly employed in a modern research laboratory for the isolation and characterization of proteins and nucleic acids. Techniques such as electrophoresis, isoelectric focusing, chromatography and spectrophotometry are associated with such currently productive fields as genetic engineering and biomedical research. In this way, students are enjoying a greatly increased exposure to techniques which prepare them for work at the forefront of science.